Educational Programs Panel at the Annual Technical Symposiumof the SIGCSE of the Association of Computing Machinery

Two years ago the National Science Foundation announced a number of new programs that support undergraduate computer science education, including CISE's Educational Infrastructure Program and EHR's Undergraduate Course and Curriculum Development Program. These programs join the current EHR's undergraduate programs of Instrumentation and Laboratory Improvement, and Undergraduate Faculty Enhancement. This request is to provide travel funds and a subsistence allowance to allow Drs. David Dobkin, Chris Nevison, Juris Reinfelds and Joe Turner to attend the ACM SIGCSE Technical Symposium on Computer Science Education in March, 1992 in order to be members of a panel discussing NSF-funded curriculum projects. Dr. David Dobkin will relate his progress with integrating computer science and the arts at the undergraduate level. Chris Nevison will present his experience over the past years with three NSF educational programs and the development of parallel processing in the undergraduate curriculum. Juris Reinfelds will describe a combined development effort in computer science and mathematics for the first two pairs of courses. The efforts of Clemson University, Bowdoin College, and the University of Connecticut to implement the Computing Curriculum '91 in their three schools will be presented by a A. Joe Turner.//